High-Performance Power-aware Computing Workshop (HPPAC)

The main goal of High-Performance, Power-Aware Computing (HPPAC) workshop is to provide a timely forum for the exchange and dissemination of new ideas, techniques, and research in power-aware, high-performance computing. HPPAC will present research that reduces (1) power, (2) energy consumption, or (3) heat generation, with little or no performance penalty. The workshop will:
. provide a forum that brings together international experts and researchers interested HPPAC;
. provide a venue for presentation and discussion of recent results related to HPPAC;
. disseminate recent HPPAC research by publishing peer-reviewed workshop proceedings; and
. promote awareness of HPPAC across the scientific community through proceedings and a web site.